UIG University/Industry Cooperative Interchange in Engineering (Supplement)

The impact of live interchange between industrial personnel and engineering students using television transmission from industrial sites is being investigated. The study is a cooperative effort of the departments of Mechanical and Electrical and Computer Engineering. Two first semester, senior-level courses, one a relatively unstructured project design course and the other a relatively structured course in very large scale integrated circuit (VLSI) design, provide the focus for the study. Brief objective surveys are used to assess student reaction